Properties and Phase Equilibria for Product and Process Design (PPEPPD) International Conference, May 12-16, 2019, Vancouver, Canada 2019

This grant will provide travel support for US-based researchers to attend the Properties and Phase Equilibria for Product and Process Design (PPEPPD) International Conference, that will be held from May 12-16, 2019, in Vancouver, Canada. The purpose of PPEPPD is the sharing of state-of-the-art techniques to further product and process design that will fuel world-wide economic growth in the chemical and related industries, and allow us to model new processes for achieving more efficient separations and meeting lower greenhouse gas emission goals. PPEPPD 2019 will bring together the most important international researchers in the application of molecular thermodynamics to industrially relevant product and process design.

The PPEPPD 2019 International Conference will provide an opportunity for exchange of ideas on the cutting edge of techniques for thermophysical properties and phase equilibrium measurement and estimation, and identify the challenges in the growing areas of alternative energy resources and storage, gas and oil upstream and downstream processing, pharmaceuticals and cosmetics, marine and saline systems and processes, nanotechnology, and sustainability. American participation is essential for making contributions to the general knowledge base, for building awareness of global activities, and for fostering international collaborations. The US-based researchers supported by this grant will have the opportunity to interact with academic and industrial researchers from around the world and exchange ideas on the latest advances on molecular thermodynamics research and education.